NSF Convergence Accelerator Track H: Making Virtual Reality Meetings Accessible to Knowledge Workers with Visual Impairments

Virtual reality (VR) promises to be a widespread technology in the coming years, but it is
completely inaccessible to people with visual impairments. One of the main advantages of VR is
that it emulates real-life interactions where people walk around and talk to one another using
naturalistic nonverbal behavior. Meanwhile, remote work has become commonplace due to the
COVID-19 pandemic. Employers, researchers, and workers alike are expressing the need for
VR workplaces, where they can more easily brainstorm and hold discussions with others.
However, while researchers and practitioners have proposed some methods for improving VR
accessibility, no one has explored how interpersonal communication in VR can be made more
accessible. While a blind person can hear someone speak, she misses out on onverbal cues
like proximity, gestures (waves, nods), and gaze. This proposal aims to investigate how such
nonverbal cues can be made accessible to improve the overall accessibility of VR to support
knowledge workers with visual impairments.

The overarching goal of the project is to develop user-centered, evidence-based guidelines that
stipulate how VR can be made accessible to knowledge workers with visual impairments. The
investigators will focus on remote work use cases, where interpersonal communication and
accessible shared materials play central roles. Following user-centered design, they will conduct
focus groups with knowledge workers with visual impairments to identify key use cases and
needs. Then they will design low-fidelity prototypes to explore accessible features. They will
evaluate these prototypes with target users and develop a preliminary set of guidelines. If
funded for Phase 2, they will iterate on the initial prototypes and rigorously evaluate them in
controlled studies. In addition, they will refine the guidelines and work to incorporate them into
existing accessibility standards.